Exploratory Research and Initial Development of Software forthe Analysis of Multiple Hybridization Images

A collaboration will be established between the National Center for Supercomputing Applications at the University of Illinois, under the direction of Dr. Larry Smarr, and the biological research group at the Whitehead Institute for Biomedical Research at Cambridge, Massachusetts, under the direction of Dr. Eric Lander. This collaboration will work toward developing a software package for analyzing clone fingerprint data used for constructing physical maps of genomes. Specifically, the project will involve extending the NCSA GelReader software (already developed by NCSA) so that it will be capable of combining information from multiple hybridization images of the same blot to obtain much more accurate information about fragment sizes, thereby allowing NCSA GelReader to be used for physical mapping projects.